Multidimensional Role of Vasopressin Receptors in Cerebral Cortex

Brinton 9601248 One of the hallmark characteristics of the cerebral cortex is its integrative capacity. Information derived from the external environment, from systems that control bodily function and from internal conscious and unconscious events all converge onto the cerebral cortex for processing and storage. A critical, as yet, unanswered question concerns the mechanism(s) by which integration of information occurs in the cerebral cortex. To address this question, Dr. Brinton is investigating the role of the vasopressin receptor in this context. Vasopressin is a small protein molecule which enhances long-term memory, a function associated with the cerebral cortex. The experiments focus on the cellular, biochemical and genomic events triggered by activation of cortical vasopressin receptors essential for the integration of information. These investigations provide a greater understanding of the basic mechanisms for the brain to process information, and gives us a greater understanding of how learning and memory are generated.